US-Mexico Cooperative Research: The Second International Workshop on Nitrogen Regulation in Ascomycetes; Cuernavaca, Mexico, March 21-25, 2001

0086371

Magasanik

This US-Mexico award will fund an international workshop on nitrogen regulation in ascomycetes, to be held at Cuernavaca, Mexico from March 21 to March 25, 2001. Organizers are Dr. Boris Magasanik, Massachusetts Institute of Technology, and Dr. Alicia Gonzalez, Universidad Autonoma de Mexico (UNAM).

The proposed workshop will serve to bring together major researchers in the area of nitrogen regulation to explore new directions influenced by genomics-based approaches, which provide insight into the control of nitrogen regulation in metabolic processes and how genes are regulated in response to nitrogen availability. An elucidation of the similarity and differences of these regulatory interactions in different, but related organisms, such as fungi and bacteria is of much theoretical and practical interest to most microbiologists.

###